Quantum Dynamics: Geometry and Spectrum

Abstract

Award: DMS-0071358
Principal Investigator: Steve Zelditch

We propose to apply quantum dynamical notions to problems in
geometry, inverse spectral theory and mathematical physics.
First is the well-known problem, `Can you hear the shape of an
analytic drum?' We have constructed a `quantum Birkhoff normal
form' of the Laplacian around a bouncing ball orbit and have
proved that it is a spectral invariant. We will investigate the
extent to which a bounded simply connected analytic plane domain
is determined by its normal forms at one or more bouncing ball
orbits. We will also investigate a new connection between the
spectrum and X-ray tomography of the domain. The second group of
problems involves applications of a recently developed
probabalistic theory of holomorphic sections of line bundles over
Kahler manifolds. We have at this time determined much of the
local statistics of sections over small balls. We have also
generalized the results to symplectic manifolds. We now aim to
apply these results to determine hole probabilities,
probabilities of transversality, and other matters which arise in
complex and symplectic geometry. The third group of problems
belongs to Quantum Chaos. We have introduced a new model of
random quantum maps, obtained by quantizing stochastic
Hamiltonian flows. We propose to investigate the main problems
of Quantum Chaos for this model.

Much of physics of the twentieth century has revolved around the
quantum mechanics of particles and fields, in particular around
the Schrodinger equation, and the physics and engineering of the
future will be even more quantum mechanical. Quantum systems are
quite un-intuitive and one of the best ways to understand what
they do is to compare them to the classical systems which they
quantize. For instance, a hydrogen atom in a strong magnetic
field can be thought of as a small particle moving in a force
field. As the magnetic field gets stronger, the particle's
motion becomes more complex and chaotic. What does this say about
the quantum particle? According to twenty years of numerical
studies, the behaviour of a chaotic quantum particle should be
random, with statistics similar to those for random matrices.
Why should solutions of the Schrodinger equation know anything
about random matrices? Our approach is to introduce a new model
of chaotic quantum systems which allows one to consider large
families of systems at once. In a sense, we are trying to
show that a `random' quantum system behaves similarly to a
`random' matrix, despite the differences in these systems.
Such a model should be able to explain observations ranging from
nuclear resonance levels to chemical reaction rates.